Landforms/Lifeforms

9453776 Wolf The Museums of the Rockies will develop a 2450 sq. ft. exhibit titled Landforms/Lifeforms and complementary educational materials including teacher enhancement activities, outreach trunks, and other programming. The exhibit will serve as the pivotal experience for visitors as they engage the museum's theme One Place Through All Of Time and it serve to introduce all other permanent exhibit galleries. Using the important and spectacular geological and paleontological resources of the region and the museum's collections, the exhibit will bring to life the concept of the evolution and diversification of life in response to changing geological conditions from the Precambrian to the end of the Mesozoic. Visitors will experience the Northern Rocky Mountain Region and the life supported by that region over time. Critical thinking skills of visitors will be stimulated with the purpose of enhancing their overall science literacy. The exhibit is designed to promote adult-child interaction. Special attention is being given to attracting a rural audience. Complementary programming aimed at K-12 students and teachers will be developed. The content of these activities will address the goals set forth in Montana's systemic initiative and the Systemic Teacher Excellence Preparation program. The educational materials will also be shared with member museums in the Mid-Continent University Natural History Museum Consortium.